Research in String Theory

The proposed research involves various topics that are at the cutting edge of the fields of string/M-theory, field theory and cosmology. The focus is on cosmological consequences of string theories. Investigations will be made on Ekpyrotic cosmology in the Horava-Witten theory. Models of string cosmology such as the Godel universe of M-theory as well as addressing the problem of the impossibility of realizing de Sitter space in string theory will be investigated. The decay of space-time as a result of tachyon condensation will also be investigated. Based on my recent discovery that universality classes of Fermi liquids are classified by K-theory, which is reminiscent of D-branes, I intend to analyze nonrelativistic aspects of string theory.